TECHMAN: Managing Design Systems in Manufacturing

Theories of design systems do not currently take into account the influence of organizational and contextual influences. This research team will demonstrate the concept of optimized design through a case study to be developed in collaboration with a pioneering concurrent engineering effort of an industrial partner. The demonstration case will then be compared with national norms for practice and process in design.